Collaborative Research on Learning Technologies: A Center for Intelligent Multimedia Instructional Systems

9616436 Woolf, Beverly Park University of Massachusetts, Amherst CISE/EHR/ENG/MPS Collaborative Research On Learning Technologies Program: A Center for Intelligent Multimedia Instructional Systems The University of Massachusetts, Amherst has been awarded funding in the amount of $50,000 for 12 months to plan a Center for Intelligent, Multimedia Tutoring Systems (IMTS) for science, mathematics, engineering and technology education in higher education and for life-long learning. ITMSs combine the power of visualization and animation with the student modeling capabilities of intelligent tutors to produce interactive learning environments that are highly effective for conveying complex, dynamic processes. The Center plan will incorporate studies of many existing ITMSs, including a number of systems developed at the University of Massachusetts. This particular corpus of work, combined with new systems that the University has pledged to develop, provides both an accumulated body of experience in IMTS development and an opportunity to submit many of them to the kind of laboratory analysis that will offer new educational insights into their effectiveness.